Knot Theory and Molecular Biology

The primary objective of this proposal is for the Principal
Investigator to acquire a thorough background in the techniques
of molecular biology, both theoretical and experimental, and
exposure to contemporary research in the modeling of long-strand
biological molecules from chemical, physical, and mathematical
perspectives, in order to bring to fruition a research program
that will develop and apply techniques of knot theory to obtain
new understanding of the dynamics of DNA, RNA and polymeric
proteins. In addition, this proposal will lead to the
development and implementation of model graduate programs in
biomathematics.

The principal investigator will serve as a visiting faculty
member in the Department of Biomathematics at Mount Sinai School
of Medicine from July 1, 1998 to June 30, 1999. This experience
will shape the PI's research program in mathematics and its
applications during the grant period and in subsequent years.
The modeling of the relationship between the structure and
function in DNA and other biological molecules is an area of
increasing importance and one that has many unexplored facets.
The vast storehouse of DNA sequence data currently being
generated will only become useful when the dynamics of its
molecular function are understood. Knot theory has already
emerged as an important descriptive and foundational language for
developing models of molecular function. The application to
these problems of new techniques of knot theory has the potential
to revolutionize our understanding of molecular biology by
enabling the development of the kind of valid and complete
descriptions of molecular dynamics that are required for the
accurate prediction of structure and function.

The expertise that the PI will obtain will also enrich the
educational experiences and broaden the career options for
students in his subsequent academic endeavors. The PI will
engage in interdisciplinary interactions with students and
faculty in the biological sciences and will work to implement
graduate programs in biomathematics. Graduates of such programs,
both at the master's and doctoral levels will enjoy excellent
employment opportunities in the pharmaceutical industry.

This IGMS project is jointly supported by the MPS Office of
Multidisciplinary Activities (OMA) and the Division of
Mathematical Sciences (DMS).